U.S.-Australia Joint Workshop: Accretion Phenomena and Associated Outflows/Port Douglas, Queensland, Australia/ July 1996

9515471 Hawley This award supports the participation of ten American astronomers at a workshop entitled "Accretion Phenomena and Associated Outflows" to be held at Port Douglas, Queensland, Australia, July 15 through 19, 1996. The American organizer is Prof. John Hawley from the Astronomy Department of the University of Virginia. The Australian principal organizer is Dr. Lilia Ferrario of the Astrophysical Theory Center of the Australian National University. The subject of the workshop is accretion disk systems. These systems are found in such diverse locations as protostellar systems, binary systems containing black holes, white dwarfs or neutron stars, and the centers of active galaxies. The workshop brings together researchers conducting observations and theoretical calculations pertaining to basic physical mechanisms involving these diverse systems. The workshop provides the Australian investigators the opportunity to interact with top American and a few third country astrophysicists, while acquainting the American participants with recent observational and theoretical research in Australia. It is anticipated that considerable new collaborative investigations will emanate from this workshop in the area of magnetohydrodynamical and fluid dynamical codes which find application to modelling the physics of accretion disks, jets and winds. Astrophysics is one of the major fundamental sciences supported by the Australian government. The Australian support for the workshop is primarily provided by the Australian Department of Industry, Science and Technology (DIST). The proceedings of the workshop will be published by through the Astronomical Society of the Pacific.